2000 and 2001 Albany Group Theory Conferences

DMS-990071433
Edward Turner

This award provides partial support for the featured speakers and for some graduate students to attend the 2000 Albany Group Theory Conference. The conference will be the eleventh in a series of conferences dedicated to the interplay between group theory and topology. There will be seven main speakers, each of whom will give a one hour talk. In addition, there will be 20 - 25 short talks by participants. The conference will be held at the Rensselaerville Conference Center in October of 2000. Further information is available at http://nyjm.albany.edu/~ted/00conf.html.